Remote Sensing and Geographic Information System Development for Archaeological, Ecological, and Geomorphological Reconnaissance on the Peninsula

ABSTRACT OPP-9630072 MASCHNER Recent research in the lower Alaska Peninsula and Unimak Island has demonstrated that this area is critical to our understanding of the development of Aleut society and human adaptation to climate change and landscape evolution in the region. A broad regional approach to these problems depends on large-scale systematic archaeological survey. Because of the expense of doing survey in this remote region, satellite images, aerial photography, a Geographic Information System and statistical modeling, combined with field controls, will be employed and tested. If successful, this method will greatly facilitate the discovery of archaeological sites and enhance our understanding of regional ecology and human adaptation in the North Pacific region.